Parallel Infrastructure for Recognition of Non-Local Patterns from Particle Detectors

This project studies pattern recognition algorithms for High Energy Physics
(HEP). In particular, it looks at pattern recognition for data from HEP
experiments which requires global information and lends itself well to
parallelism. While a trivial form of parallelism has always been present
in HEP software due to the independent data (results of separate high
energy collisions), there has been little done for pattern recognition
within single events. This is a particularly pressing problem for the next
generation of experiments where data is taken in at rates of up to 20
Mbytes each 25 nanoseconds and rapid pattern recognition is essential to
decide which events should be kept for later study. Since a single event
will leave traces in many different detectors, pattern recognition here is
a non-local, non-sequential pattern matching problem.

Other physicists have tried to find a quick heuristic match during a single
pass through the data. In contrast, this project will do a more careful
analysis of the data to better resolve multiple events that are close in
time and space by using signal processing techniques (e.g. Kalman
filtering) to pre-process the data. The project will use a better
algorithmic formalism to take advantage of computer science algorithms and
data structures, and will implement parallel algorithms to recognize
non-local patterns. Special challenges will be presented by the
anticipated datasets, which have petabyte sizes. New algorithms for these
applications will have to take careful account of the different access
times for RAM and disk access. This project is interdisciplinary in
nature, with potential impact on both computer science and high energy
physics.